Problems in Function Theory

Abstract:
Garnett will work on several problems in classical one dimensional
complex analysis. The first problem is to approximate any Blaschke product
uniformly on the open disc by Blaschke products whose zeros are
sufficiently spread apart and thin that the corresponding Riesz mass is
bounded in all holomorphic coordinate systems (i. e. is a Carleson measure)
The approximation should be effected using explicit constructions.
The second problem is to exhibit large compact sets whose complements
do not support nonconstant bounded analytic functions. The third problem
is a corona problem for infinitely connected plane domains whose boundaries
lie on rectifiable Jordan curves. It too requires some new explicit
constructions. The fourth problem is to show that a Jordan curve
depends continuously on its welding map, which is the correspondence on the
unit circle that connects the conformal mapping of the inside of the
disc to one side of the curve and the outside of the disc to the
other side of the curve.

The methods to be used on these problems will be constructive so that they
can be give explicit computer aided constructions of analytic functions
and conformal mappings. Analytic functions and conformal mappings have
broad applications in fluid dynamics, acoustics, and electrical engineering,
and in these applications constructions are more useful
than general existence theorems.